Student Research Workshop in Computational Linguistics at the ACL 2008 Conference

The Association for Computational Linguistics (ACL) is the primary international organization
in the field of natural language processing. The ACL's annual conference is the major international
conference in this field. This project is to subsidize travel, conference, and housing expenses of
students selected to participate in the Association for Computational Linguistics (ACL) Student
Research Workshop, which is part of the ACL conference on June 15-20, 2008 in Columbus, Ohio.
The workshop consists of two tracks: full paper presentations and poster presentations. All selected
work has only student authors. The full paper sessions are composed of paper presentations followed
by a discussion panel led by respected researchers in the field. The workshop is organized and run by
students. The workshop provides a valuable opportunity for the next generation of natural language
processing researchers to enter the computational linguistics community. It allows the best students
in the field to take their first important step toward becoming professional computational linguists
by receiving critical feedback on their work from external experts, and by making contacts with
other students and senior researchers in their field. The students who are involved in running and
selecting papers for the workshop also gain valuable opportunities for professional growth and interaction
with the researchers on the organizing committee of the main conference. The workshop contributes
to the maintenance and development of a skilled and diverse computational linguistics and natural
language processing workforce, helping to produce a pool of researchers with the scientific and
engineering knowledge for natural language processing.